RUI: Participation in the Study of Singly and Doubly Strange Nuclear Systems (Physics)

To search for the possible existence of the H particle, a strangeness minus 2 dibaryon, and thus test the two step reaction mechanism and a special two compartment cryogenic target. The kaon charge exchange reaction will be used to produced cascade minus particles in the liquid hydrogen part of the target. The cascade minus will be slowed down and stopped in the liquid deuterium part of the target to form a cascade minus deuterium atom which can decay to the H particle by neutron emission. The neutron from this reaction will be monoenergetic and its energy will be measured by time of flight techniques. The signature for the H particle will be a peak in the neutron time of flight spectrum. The experiment will be performed in a new high momentum beam line to be built at the Brookhaven AGS. The project will permit the collaboration of Professor Stearns, of Vassar College and physics majors from Vassar in these experiments. This project should lead to the strengthening of the physics major at Vassar particularly through the enrichment of an advanced laboratory course and a course in Modern Physics taught by the principal investigator.